Study of Point Defects in Semiconductors using Optical Detection of Magnetic Resonance

9704386 Watkins This experimental research project centers on the atomic scale defects present in technologically relevant semiconductors as probed by optical detection of magnetic resonance and by optically detected electron-nuclear double resonance. The defects of interest include intrinsic defects such as vacancies, interstitials and anti-sites, as well as important chemical impurities and simple complexes resulting from interactions between them. The purpose of the research is to understand the electronic and vibronic structure of the ground, metastable, and excited states of such defects, and to determine on a microscopic scale the role they play in the electronic and optical properties of this class of materials. The emphasis in the renewed research is toward the wide bandgap semiconductors, including II-VI compounds, III-V nitrides, diamond, and SiC. The rationale is that relatively little is known about the defects in these materials and there is good reason to anticipate surprises and new important physics in their properties. This is because of competition between the increased recombination energy available from the bandgap on the one hand, and the increased role of many- electron effects due to the greater electronic localization on the other. Theory is pressed in dealing with deep defects, and high quality experimental information will be useful to guide and test new theory. In addition, these materials are of technological interest for their potential as visible and uv light emitting and high temperature electronic devices. Such applications will require an understanding of point defects greatly in excess of what little is now known. A major experimental approach will be to produce intrinsic defects by 2.5MeV electron irradiation for study by the ODMR and ODENDOR techniques. In some cases irradiation in situ at 4.2K in a special ODMR facility will allow study of pristine Frenkel pair defects (vacancy-interstitial close pairs) at low temper ature and as they are slowly warmed. %%% This experimental project focuses on important atomic scale defect structures that occur in crystalline samples of semiconductors. Such defects, which include vacant lattice sites, additional atoms located interstitially, and chemical substitutions (as for example As as an impurity in Si) are well known to have important consequences on the electronic properties of semiconductors. Such point defects as As in Si introduce an extra electron for electrical conduction (these are called donor impurities); others introduce holes, and all point defects have a "scattering" effect on the motion of electrons and holes when an accelerating field is applied, tending to reduce the current for a given voltage. The present project makes use of an advanced optically detected magnetic resonance method for study of various point defects. The work will focus on those "wide bandgap" semiconductors which are now being considered for unique applications for which silicon and gallium arsenide are not suitable. Possible applications of the wide bandgap semiconductors are for visible and ultraviolet light emitting diodes and for high temperature electronic devices. The semiconductors of interest include, for example, SiC and GaN. A special aspect of the experimental work will be deliberate introduction of point defects by electron irradiation. This work involves a postdoctoral fellow who will be excellently trained in the course of this research for a position in industry, government, or academia. ***